Dissertation Research: Mechanisms of Migration

Mobile animals often move through complex environments on regular migratory routes between their shelters, feeding places, and breeding sites. The mechanisms underlying such migrations are poorly understood. Coral-reef fishes that migrate daily between different places in one local area offer an outstanding opportunity to study these mechanisms. The doctoral-dissertation research of Anthony I. Mazeroll will investigate the mechanisms underlying the local daily migrations of brown surgeonfish during the summer spawning season in the northern Red Sea (Gulf of Aqaba, Israel). Mr. Mazeroll will conduct experiments designed to reveal the roles of learning, memory, and cognitive maps in these migratory movements. This research will provide valuable information about the various factors influencing local migrations of animals. It will also reveal details about the abilities of animals to learn and remember physical features of their environments, and will thereby contribute to a small but important body of knowledge about the role of learning in natural populations.